Ultraviolet and Visible Spectroscopy at McMurdo Station

This project is to study the chemistry of the antarctic stratosphere with a focus on those chemical constituents that are related to the annual springtime depletion of ozone, known as the ozone hole. Visible and near ultraviolet spectroscopy will be used to measure the total column abundances of nitrogen dioxide, symmetrical chlorine dioxide, nitrogen trioxide and bromine monoxide above McMurdo, Antarctica. The variation of the diurnal variation of these chemicals is of particular value in understanding the photochemical processes that cause the ozone hole. In addition, a novel technique that uses the moon as a light source during times of sunrise and sunset will allow the measurement of vertical profiles and also the rate of photolysis of fast reacting species. This research is funded by the NOAA Aeronomy Laboratory with logistical support provided by NSF/DPP.